Dynamics of Nonequilibrium Condensed Matter Systems

9626119 Coppersmith This new award focuses on the theory of the dynamical properties of inhomogeneous condensed matter systems. In particular, emphasis is on the nonequilibrium dynamics of granular materials and of collective motion in driven disordered systems such as flux lattices in type-II superconductors and sliding charge density waves. Recent experimental work on these systems has revealed rich dynamical behavior that may be amenable to detailed theoretical understanding. The research goal is to understand both the deterministic and noisy response of these systems and to identify unifying physical principles that may be applicable to a broad range of complex systems. %%% This new award focuses on the theory of the dynamical properties of inhomogeneous condensed matter systems. In particular, emphasis is on the nonequilibrium dynamics of granular materials and of collective motion in driven disordered systems such as flux lattices in type-II superconductors and sliding charge density waves. Recent experimental work on these systems has revealed rich dynamical behavior that may be amenable to detailed theoretical understanding. The research goal is to understand both the deterministic and noisy response of these systems and to identify unifying physical principles that may be applicable to a broad range of complex systems. ***